Investigations by Fourier Transform Microwave Spectroscopy

Professor Robert L. Kuczkowski of the University of Michigan has received a research award from the Experimental Physical Chemistry Program of the National Science Foundation to study small cluster molecules using long wavelength radiation (similar to that found in ordinary microwave ovens). This work will provide structural information and electrical properties on the cluster molecules. An investigative program which examines the dipole moments, structure and dynamics of weakly bound complexes of hard bases, and charge transfer complexes will be carried out. Nuclear quadrupole coupling constants and high temperature samples will also be investigated by means of Fourier Transform Microwave spectroscopy, a field in which Professor Kuczkowski is a world authority. He will continue his fruitful collaboration with Dr. Kurt Hillig, also a member of the University of Michigan's Chemistry Department.